CAREER: Scalable Search Engines via Adaptive Topic-driven Crawlers

This research project will develop adaptive, personalized, topic-driven crawlers to help search engines. The current search engines do not scale in a dynamic environment. The proposed research will overcome this limitation. The research will utilize an autonomous agent-based approach to building new scalable algorithms. The career development plan will include integrating the results into the undergraduate and graduate curriculum. The students will also carry out projects using the results of this research.